Generative AI Design and Directed Evolution of Enantioselective Artificial Metalloenzyme Photocatalysts

In this project, Professor Jared Lewis of the Department of Chemistry at Indiana University is developing new ways to combine the power of synthetic chemistry with the precision of biology to create more selective and sustainable chemical catalysts. Catalysts are substances that speed up chemical reactions and are essential for producing medicines, agricultural products, and many everyday materials. The project uses artificial intelligence to design new proteins that can hold and control light-activated metal compounds, allowing chemical reactions to occur with greater efficiency and precision. By learning how weak interactions within proteins influence chemical behavior, this research could make it easier to create cleaner manufacturing processes that generate less waste and use less energy. The project also includes educational outreach activities aimed at improving understanding of biocatalysis among graduate, undergraduate, and high school students through instructional modules and teacher professional development programs.

This research will develop de novo artificial metalloenzymes (ArMs) that incorporate metal polypyridine photocatalysts through non-covalent interactions within AI-designed protein scaffolds. Previous NSF-funded studies in the Lewis laboratory demonstrated that second coordination sphere interactions and protein conformational dynamics strongly influence cofactor binding, photophysical behavior, and catalytic selectivity in prolyl oligopeptidase-based ArMs, although efforts to achieve highly enantioselective photocatalysis in that scaffold were unsuccessful. The proposed study will use generative AI methods and directed evolution to design and optimize new protein scaffolds for iridium and related metal polypyridine photocatalysts. Structural, spectroscopic, and computational studies will be used to characterize how emergent non-covalent interactions modulate electronic structure, redox properties, and catalytic selectivity. The project will pursue three objectives: improving first-generation iridium ArM photocatalysts, designing second-generation scaffolds for diverse cofactors and photocatalytic reactions, and incorporating secondary catalytic elements into ArM systems. These studies aim to establish general principles for designing selective photocatalysts based on artificial metalloenzymes and to expand the capabilities of biocatalysis through AI-enabled protein design.